Conference: NSF FuSe and FuSe2 Awardees Meeting

Non-technical:
Semiconductor technology has long advanced following the trends in miniaturization, underpinned by new materials, processes, devices, and architectures. Developments in these areas have often progressed independent of the application area, which has delayed their incorporation into next-generation technologies. The technological drivers for such integration include the need to reduce the energy consumption of computation and communication technologies; reduce the impact of device and system manufacturing on the environment; increase performance speed and capacity; and develop new computing systems. The FuSe-PI meeting will foster and promote a high level of information exchange that will lead to new ideas and concepts to advance semiconductor technologies through co-design. The meeting also will initiate and foster new partnerships among groups of researchers who generally do not interact, but whose separate endeavors can complement and foster synergistic work with strong potentially transformative impact in semiconductor technologies.

Technical:
The Future of Semiconductors Awardees Workshop will foster communications among FuSe and FuSe2 awardees, the industry partners (Intel, Micron Technologies, Samsung, and Ericsson), and government program officers through a combination of context setting plenary presentations, presentations from FuSe and FuSe2 awardees, structured discussions, and a poster session. The meeting will discuss fundamental challenges and opportunities at the interfaces between materials, engineering and computer information and science research, including co-development of critical technologies. The meeting will be structured around the three FuSe2 research topics: (1) Collaborative Research in Domain-Specific Computing; (2) Advanced Function and High Performance by Heterogeneous Integration; and (3) New Materials for Energy Efficient, Enhanced-Performance and Sustainable Semiconductor-Based Systems